"Tiny Package" Through MOSIS and Performance Driven Layout for Multichip Packaging

A standard for multichip module (MCM) packages is proposed called "Tiny Packages". This is to be used by university researchers in VLSI subsystem design using multichip modules (MCMs). The goal is for fabrication to be done through MOSIS in a similar manner to the use of the "Tiny Chips" standard at the single chip level. The first version of public domain computer aided design (CAD) tools for MCM design is developed making use of the "Tiny Packages" standard. These tools optimize the placement of chips on the substrate and the multilayered routing of substrate interconnections to exploit MCM high-performance potential. The utility of these tools will be refined and validated by application to the re-packaging of a commercial digital signal processor (DSP) printed circuit board. The relative features and performance of the two designs will be compared. At no cost AT&T will provide the unmounted chips, fabricate the MCMs designed, then assemble and test the resultant redesign.